Three Dimensional Manifold Topology

DMS-0204428
Xingru Zhang

The study of compact irreducible 3-manifolds splits naturally
into cases of finite fundamental groups and infinite fundamental
groups. In the case of infinite fundamental groups, the virtual
Haken conjecture of Waldhausen has been serving as a guiding open
problem, because virtual Haken 3-manifolds possess similar nice
properties as Haken 3-manifolds, such as topological rigidity,
residually finite fundamental groups and geometric decomposition
in Thurston's sense. Concerning 3-manifolds with finite
fundamental groups, the Poincare conjecture is perhaps the most
fundamental open problem. The well known Property-P conjecture
may be considered as a special case of the Poincare conjecture.
Xingru Zhang proposes to continue his investigation of the virtual
Haken conjecture and the Property-P conjecture, along with some
closely related problems, such as embedded or immersed essential
surfaces in 3-manifolds, various exceptional Dehn surgeries on
hyperbolic knots, and representations of 3-manifold groups.

Three dimensional manifold topology, including the knot theory,
has been one of the most active research areas in topology over
the last twenty-five years. This is a rich, beautiful and
challenging area where topology meshes up harmonically with
algebra and geometry. For instance, if a compact 3-manifold
without boundary admits a complete hyperbolic metric, then the
topology, the fundamental group and the hyperbolic metric of the
manifold mutually determine each other. In general, it is
fundamental to know that to what extent the topology of a compact
3-manifold is determined by the fundamental group of the manifold,
and that whether the interior of a compact 3-manifold admits one
of the eight standard complete metrics under the condition that
the manifold contains no essential 2-spheres or 2-tori. In this
proposal the PI plans to continue his investigation in this
direction.